Synthesis and Characterization of New Poly(p-phenylene)s for Gas Separations Membranes

9633958 Sheares The exploitation of the synthesis by the PI of a soluble poly(p-phenylene) derivative is proposed for gas permeable membrane applications. The first polymer of this class synthesized in our laboratory, poly (2,5-benzophenone), is a thermally stable polymer as one would expect given the rigid poly(phenylene) backbone. However, the material is also amorphous, soluble, and film-forming. These results point to the potential for the synthesis of a variety of processable, thermally stable polymers using a facile, mild nickel catalyzed reaction. Additionally, the chemistry will allow the freedom to vary the substituent polarity and chain packing density for the purpose of studying fundamental structure/property relationships in polymeric membranes. The ability to make systematic modifications in the polymer sidegroups may lead to membranes with improved permeability and selectivity. The effort is divided into two tasks: (1) synthesis and characterization of new 2,5-benzophenone and 2,5-diphenylsulfone-based polymers and (2) gas permeability analysis and polymer modification. %%% This research will provide the basis for new polymer synthesis aimed at novel gas-permeable membranes with potentially improved permeability and selectivity for environmental applications. ***